Smooth Only Torsion-free G_3 Holonomy, Normal Holonomy and Isoparametric Hypersurfaces in Spheres

Abstract of NSF Proposal #0103838

Dr. Chi proposes to find smooth torsion-free G_3 connections that are not
analytic by exploring a certain system of partial differential equations
induced from such connections. The affirmative solution to this work will
open a new avenue of research about these connections, for which all the
known examples by far have been analytic. He also proposes to investigate
the classification problem of isoparametric hypersurfaces with four
principal curvatures in spheres by investigating the normal holonomy Lie
algebra of a focal submanifold of the hypersurface, which contains the
information about the 2nd fundamental form of the focal submanifold, which
is, by his study, crucial for the classification.

If one sets off from the North Pole and travels with a compass along a
loop, one will discover that at the end of the trip back at the North Pole
the compass needle has turned a degree. This says mathematically that parallel
translation (induced by a linear connection) of vectors along loops can
detect whether the space is flat, which is fundamental to Einstein's
Theory of Relativity. In Hermann Weyl's terms, the existence of inertia
systems in the universe warrants that its linear connection is
torsion-free. The project on torsion-free G_3 connections is a study of the
rather anomalous nature of these connections among all exotic holonomies
whose development has been participated by the PI. The notion of
isoparametric hypersurfaces was first proposed in connection with wave
fronts in Euclidean space and recently the more general Dupin hypersurfaces
were tied with integrable hamiltonian systems of hydrodynamic type. Shortly
after their introduction the isoparametric hypersurfaces were all classified
in Euclidean and hyperbolic spaces of all dimensions. The complete
classification of such hypersurfaces in spheres of arbitrary dimensions has
defied people's efforts for nearly six decades, despite many outstanding
results achieved in the past three decades. The PI's second project is to
utilize the normal holonomy and the new approach of him, T. Cecil and G.
Jensen toward the classification in the case of four principal
curvatures.